IRES: U.S.-France International Research Experience on Toxicity Biosensors: Towards Novel Sensor Architectures, Detection Schemes and Applications

0728130
Stanciu

This International Research Experiences for Students (IRES) proposal will support U.S. undergraduate students from Purdue University to conduct research at the BIOMEM-Centre de Phytopharmacie at the University of Perpignan in Perpignan, France. It is part of a collaborative effort with Clarkson University. Altogether, four U.S. undergraduate students, two from Clarkson and two from Purdue, will be hosted by the BIOMEM group for 10 weeks each summer over a three-year-period. Students will conduct research to develop ultra-sensitive, field-deployable biochemical systems for the monitoring of newly identified toxic, environmental, and food contaminants. This will give students a hands-on experience for developing today's new technology and expose them to present-day global environmental problems.